Storage Improvement, Conservation Treatment and Documentation Upgrade of Archaeological Perishable Material

Odegaard With National Science Foundation support, Nancy Odegaard and her colleagues will conduct a program to improve the conservation of and access to perishable archaeological artifacts excavated from a number of sites in the American Southwest. This collection consists of an estimated 21,500 artifacts and ethnobotanical lots. Based on a conservation survey, approximately 18% require improved housing; many others require major or minor conservation treatment. To remedy these problems, the team will undertake necessary conservation, improve storage of materials and consolidate and organize associated documentation. The related computerized database will be updated and a user's guide developed. The archaeology of the United States Southwest is important for several reasons. First, this region saw the rise of complex societies which in prehistoric times linked communities with roads which stretched across large expanses of deserts, which constructed multistory buildings which housed hundreds of individuals and which devised ways to survive in a harsh and unpredictable desert environment. Secondly, because of the dry conditions, perishable organic materials are often well preserved and these provide insights which are rare in archaeological situations. For example it is often possible to reconstruct local environmental conditions and then determine the subsistence strategies which human groups took to adapt and respond. The perishable organic materials at the Arizona State Museum are an endangered and valuable archaeological resource. With NSF support, they will be properly conserved and made more available for scientific research.